Solvent-Ion Pair Chiral Recognition

The focus of this research is to determine how chiral solvents will effect a chiral dianion. Lithium-NMR will be used to investigate solutions of the lithium salts of the R and S chiral isomers of several substituted cyclooctatetraene dianions in a variety of chiral solvents. The NMR studies will indicate the extent to which ion association equilibria are perturbed by the chirality of the solvent and the dianion. The effects of the dual chirality on the electron affinity of the cyclooctatetraene ring systems will also be studied. With this Research in Undergraduate Institutions (RUI) award, the Organic Dynamics Program is supporting the research efforts of Dr. Cheryl D. Stevenson of the Department of Chemistry at Illinois State University. Professor Stevenson will focus her work on demonstrating the extent of solvent chiral recognition that can be achieved with cyclooctatetraenyl dianions. The area provides an excellent opportunity for involvement of undergraduate and masters level students.